International Congress on Biophotonics

The focus of the Congress will be to identify major scientific achievements in three selected key
biophotonics thematic areas:
1) Advanced Microimaging;
2) Probes, Sensors and Assays; and
3) Clinical Biophotonics.

There will be presentations from end users and industry representatives concerning current and
projected needs in key topic areas:
1. Cancer;
2. Infectious Disease;
3. Cardiovascular Biology;
4. Regenerative Medicine;
5. Neuroscience.

Composition & Role of Organizing Committee:
Three organizing committees have been selected to participate in the planning of this event.
These include an international, national, and local committee. The primary goal of each of the
organizing committees is to nominate speakers and panelists to participate in the Congress, to
serve on panels and as moderators, and finally, to help craft the roadmap document. The
international committee members serve to represent their country of origin throughout the globe
to ensure international inclusion to the Congress speakers and participants. The national
committee members include members from key institutions in the United States that have
educational programs and researchers in biophotonics. The local committee is comprised on
members of the Center for Biophotonics at UC Davis.